Support for International Travel to Conference on Multiple Agents

The International Conference on Multiagent Systems, being held July 4-7, 1998 in Paris, has as its purpose bringing together researchers in the important area of agent-based software design, a major factor in the successful exploitation of the World Wide Web, digital libraries, and electronic communities, among other applications. This grant will provide travel funds for representation of American research, including some graduate students, at the conference and its related workshops collectively called "Agents World". http://euler.mcs.utulsa.edu/~sandip/ http://cosmos.imag.fr/MAGMA/ICMAS98